Self Aggregation of Surface-Active Graft Co-Polymers in Aqueous Solutions

Graft copolymers represent an important class of network-forming surface active polymers because they can be produced easily from synethetic and naturally-occurring homopolymers such as poly (vinyl alcohol), cellulose derivatives, etc. In this study, self-aggregation and network formation of surface-active graft copolymers in aqueous solutions will be investigated. The results of this study should provide the basis for designing unique dispersed-phase membranes and hydrogels which are selective to solutes based on solute hydrophobicity rather than size. These novel materials are expected to be advantageous in a broad spectrum of separations applications.